RUI: Acquisition of Air Pollution Sampling Equipment

This RUI (Research in Undergraduate Institutions) award supports the acquisition of atmospheric chemistry and aerosol instrumentation. The package will consist of an air sampler to collect particulate matter; a microbalance, and ion chromatograph, and an instrument to quantify aerosol carbonaceous matter; instruments to measure the gas phase concentrations of ozone, sulfur dioxide, nitrogen oxides, carbon monoxide and dioxide; and a portable meteorological tower to measure the temperature, humidity, pressure and wind speed and direction. The principal investigator will use this instrumentation for undergraduate instruction, including field projects at San Jose, California, and in Hawaii Volcanoes National Park.